Doctoral Dissertation Research in Political Science

Since the Late 1950s, the Latin American Church has undergone radical changes in terms of theology and pastoral organization. Innovations such as liberation theology and comunidades eclesiales de base (CEBs) have tended to reinvigorate the political role the Church plays in society. Moreover, in several authoritarian regimes, the Catholic Church as been the sole source of opposition. Nevertheless, this change has not been uniform across Latin America. Several national episcopates supported authoritarian rule in the 1960s and 1970s. This doctoral dissertation research investigation examines the role of religious competition (between Catholics and non-Catholics) in determining whether the national Church hierarchy endorses or opposes dictatorial rule. The dissertation student investigates whether increasing presence of Protestant sects in some countries has forced the episcopate to adopt membership-retention strategies that are antithetical to the military's goal of suppressing subversive organizations. Furthermore, conflict between the Church and military regime is assessed concerning whether Church access to state patronage was reduced during the early part of the century. The student will combine historical research with field research (interviews with church leaders) in Chile to examine this topic.